Mathematical Sciences: Non-Linear Aspects of the Geometry of Convex Sets

9504249 Goodey The proposed research lies in the area of geometric convexity theory. In particular, the proposer wants to study projection functions for centrally symmetric convex bodies using the Radon transform techniques. The projection functions are objects of importance in stereology and tomography. In particular, they are used in the X-ray problem where the researchers seek to find efficient algorithms to reconstruct convex bodies from their X-ray images.